SBIR Phase I: Chemically Resistant Membranes for Water Purification

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project will provide new opportunities for purifying waters that cannot be economically treated using existing commercial membranes. Increased market growth to include recycle and re-use of contaminated water that is currently slated for disposal or long term environmentally risky storage will increase water availability for industry and agriculture and reduce environmental impact from these same users. More available water, especially in higher demand locations, will lead to higher production and lower costs for industrial and agriculture based consumers, leading to job growth.

This SBIR Phase I project proposes to validate a new method of thin film composite membrane fabrication using new materials strategies to produce game changing anti-fouling and chlorine resistant reverse osmosis membranes. Current market dominating polyamide thin film composite (TFC) membranes are inherently susceptible to fouling and degraded by chlorine disinfectants used to mitigate bio-fouling, which is the greatest challenge to membrane operation. The established TFC production technique provides very thin active layers on the order of 100’s of nanometers but is limited to polyamides. The proposed technology will produce TFCs with alternative polymers. Polymers that are chlorine resistant and inherently non-fouling are targeted for use but the unmet challenge has been the opportunity to manufacture them with membrane thicknesses down to the 100’s of nm thickness regime necessary to challenge the flux properties of current commercial membranes. Combining this new fabrication technology and new polymers is the technological breakthrough needed to develop innovative membranes. The project will synthesize a target polymer composition, develop the formulation and fabrication parameters within the new process and produce TFC samples for testing. TFC samples will undergo comparative testing of fouling and chlorine resistance, water flux and salt rejection in a variety of simulated test waters.